Connection to NSFNET

This award enables Merrimack College to connect to NSFNET by a 9,600 bit per second link through the mid-level network NEARnet. Access to NSFNET provides the faculty and students with access to supercomputers, data archives, a variety of network gateways, automated library catalogs, and a wide range of software. Primary applications include file transfers, electronic mail communication between local and remote researchers, and remote login to and use of supercomputers and other research facilities.